Workshop proposal: Supporting U.S. Student Involvement in a SoilTrEC Training Event: Land-use practices and sustainable use of soil

This is a request to support participation by graduate students and post-docs in two important international events organized around the concept of sustainability: 1) the international conference entitled Soil Carbon Sequestration for Climate, Food Security and Ecosystem Services (http://scs2013.land.is/) in Reykjavik, Iceland from May 26-29, 2013; and, 2) a Critical Zone science training workshop of the Soil Transformations in European Catchments (SoilTrEC) project: Land-use practices and sustainable use of soil, May 30-June 2, 2013, also in Iceland.
The events are excellent opportunities for networking. In addition, these ten early-career scientists will form a core group of young U.S. Critical Zone scientists who will begin to consider sustainability issues throughout their evolving careers.